Dispute Management in Amish Society

How do individuals handle disputes and how is this process affected by the values and norms of various cultural groups? While cultural norms and mores are typically assumed to be important, little of the extant literature has sought to illuminate why, how, and in what ways. Drs. Hostetler, Kidder, and Huntington seek to do so through comparative study of disputing in Amish society--both conflict management within this society and between the Amish community and outsiders. The context of Amish society is particularly interesting because of the strongly held commitment of this group to refrain from the use of law. Based on systematic analysis of verbatim interviews and observation data, the study is designed to identify the origin and range of disputes in this separatist group, examine the alternatives for handling grievances and their consequences, determine the social and economic costs to individuals prevented by their religious beliefs from using the judicial system, and illuminate the relationship between disputing and community well- being. By focusing on settlements in two geographic areas (one traditional Old Order Amish and the other modernizing Amish- Mennonite), this collaborative team intends to unravel both the relationship between cultural values and disputing and whether changing cultural mores stimulate different patterns in conflict management. Thus, the research should advance our understanding of disputing in society and the ways that such processes are affected by ideology, social solidarity, and social change.